KDI: Molecular Information and Computer Modeling in Cardiac Electrophysiology

Molecular Information and Computer Modeling in Cardiac Electrophysiology
>
> Simultaneous with the explosion in computer speed and ability,
>the biological sciences have been undergoing a revolution. There has
>also been an explosive increase in the quantitative understanding of the
>fundamental building blocks of life. The emergence of molecular biology
>has defined biology with mathematical precision through the genetic
>code. We now have the tools to study and manipulate biology at the level
>of individual molecules. This has resulted in an explosion of data. This
>project examines how one class of molecules, ion channels generates,
>controls and coordinates normal and abnormal electrical activity in the
>heart. Recently developed techniques in molecular biology can tell us the
>tissue distribution of an ion channel type over the entire heart, down to
>microscopic resolution. Previous techniques could only provide
>resolution down to a few millimeters and the currents from only a few
>cells could be measured within this space. Thus, molecular biology has
>provided us with a several orders of magnitude increase in information
>concerning the density, cellular and tissue distribution of the excitable
>elements in the heart. This is a several orders of magnitude increase in
>information over that available only a couple of years ago. It is a major
>computational challenge to organize, display, interpret and utilize this
>new information. This project will develop the computational tools to
>analyze this molecular information from a systems point of view. This
>proposal seeks to develop the mathematical and computational tools to
>integrate this emerging data from molecular to organ function in cardiac
>muscle. It will develop efficient methods to look at how patterns of
>electrical activity in individual cells are coordinated across the entire
>heart and how slow molecular processes, i.e. memory, influence events
>which occur on millisecond time scales during regular beating of the
>heart.
> Ion channels are found in all living cells. Coordinated ionic
>responses arising from multicellular interactions are an integral part of
>the physiology of many organs. Chaotic behavior and abnormal electrical
>activity is not only a problem in the heart where it may underlie fatal
>arrhythmias, but also plays a role in neurological disorders such as
>seizures. Action potentials and electrically coordinated activation of ion
>channels occurs across a wide variety of species. Similar mechanisms
>govern the leaf closing touch response of the Mimosa, heliotropism and
>solute transport in root systems. Thus, the mathematical formulation of
>coordinated ion channel activity in heterogeneous systems is of wide
>application across biology.